GOALI: An Improved Method for Computing Zero-Sequence Impedance of An Underground Pipe-Type Cable

9632118 Xu Underground pipe-type cables in power transmission systems are widely used in urban areas. To protect such systems, it is necessary for the utilities to be able to accurately calculate fault currents in the system. An accurate calculation of fault currents requires precise knowledge of the impedance of the underground cables. The objective of the proposed research project is to develop an improved method for computing zero-sequence impedance of underground pipe-type cables. The pipe of the cable is grounded at both ends and the phase currents may be unbalanced. Since the pipe is normally made of steel which is a nonlinear magnetic material, special attention will be paid to its nonlinear B-H characteristic and an iterative procedure will be employed to determine the varying permeability in the steel pipe. The zero- sequence impedance can be computed based on information of the nonuniform current distribution in the phase conductors as well as the electric field intensity and the total current in the steel pipe. Therefore, it is proposed that the major effort be devoted to obtaining the necessary information in these two respects. In the determination of the nonuniform current distribution in the phase conductors, a Fourier series technique developed in the proposer's previous research project will be employed, taking into account the skin effect, the proximity effect and the influence of the steel pipe. To compute the electric field intensity and the total current in the steel pipe, including the circulating current and the returning zero-sequence current, a set of equations are formulated based on Faraday's law. The equations formulated will be solved by an iterative procedure. To validate the numerical techniques developed, it is proposed that measurement of zero- sequence impedance be performed. The computational results will be compared with the measurement data. ***